Keeping Up with the 90"s in Computer Science Equipment

This award will provide infrastructure for research that is organized around five laboratories: 1. LINC - for research on artificial intelligence and natural language processing; 2. GRASP - for research on machine perception and robotics; 3. GRAPHICS - for research on graphic interfaces, movement description, and animation; 4. DSL - for research in computer architecture and computer communication; 5. LOGIC & COMPUTATION - for research in logic and computation, including theory of computation, database systems, and programming languages. Two new facets of the research, integration and upward scaling, require an enhanced experimental environment involving machines with massively parallel architectures. The award will help to develop this environment by providing funds for a SIMD machine for work in natural language processing, and active perception and real time manipulation; a MIMD machine for simulation and research involving extensive scientific calculations; as well as high speed workstations with rich environments for work in theoretical computer science.